Career: Sparse directional multiscale representations: theory, implementation and applications

Labate
0746778

The investigator develops, implements, and applies a new
multiscale representation method for multidimensional data. The
proposed shearlet approach encompasses the mathematical framework
of affine systems and, to date, is the only method able to
combine optimal sparsity (few coefficients to compute), fast
transforms through the power of multiresolution analysis (fast
computation) and full mathematical justification and framework
(great flexibility and versatility). The sparsity of the
proposed shearlet representation is a direct consequence of its
genuinely multidimensional multiscale character, and its fast
implementation a consequence of its affine mathematical
structure. The project is organized into three main directions
of investigation, with several specific goals. First, the
mathematical framework underpinning the shearlets is investigated
to set the foundation for the construction and analysis of
optimally sparse multidimensional representations. Next these
representations are applied to the decomposition of functions
spaces and operators. More specifically, the shearlets are used
as building blocks of anisotropic function spaces. This step has
significant implications in approximation theory, in the study of
Fourier integral operators, and for various nonstandard
regularity spaces associated to partial differential equations.
Third, shearlets are applied to problems from image processing
and image analysis. Specifically, improved algorithmic
implementations are developed and applied to image denoising,
edge detection and shape recognition. Tests are conducted on
biomedical data to address specific application-driven problems,
including geometric reconstruction of neuronal morphology from
confocal images and neuronal classification.

Over the past twenty years, multiscale methods and wavelets have
revolutionized signal processing and stimulated an impressive
amount of research in mathematics and engineering. In fact,
wavelets provide optimally efficient representations of
one-dimensional data and have fast numerical implementations. As
a result, wavelets are successfully employed in a number of
strategic applications, including the new FBI fingerprint
database and JPEG-2000, the new standard for image compression.
In spite of their remarkable success, wavelets are far from being
optimal in general. Even though they outperform other
traditional methods, they fail to capture intrinsic geometrical
features of multidimensional phenomena. For instance, they do
poorly at dealing with features such as the edges of an image or
the boundary surfaces of a solid object, and, as a consequence,
they are unable to handle efficiently the ever larger
multidimensional data sets which are required by many modern
applications. By contrast, the approach addressed in this
project is truly multidimensional and opens the door to a new
generation of highly efficient methods for the storage,
transmission and processing of data. The applications arising
from this research facilitate technological advances in sensitive
applications such as remote sensing, medical diagnostics, data
transmission and classifications, video surveillance, and storage
of data.